NIRT: Mechanism-Based Modeling and Simulation in Nanomechanics

Mechanism-Based Modeling and Simulation in Nanomechanics

G. Xu, Department of Mechanical Engineering, University of California at Riverside
H. Gao, Department of Mechanical Engineering, Stanford University
W. D. Nix, Department of Materials Science and Engineering, Stanford University
Y. Huang, Department of Mechanical and Industrial Engineering, University of Illinois at Urbana-Champaign

Abstract

This research is aimed at developing effective methodology for the study of nanoscale mechanical behavior of materials. In particular, combined atomistic simulations and continuum models will be developed to investigate the energetics of dislocation nucleation and motion and their respective roles in nanoscale discrete plastic deformation. The nanoindentation technique will be used to probe the mechanical behavior of materials at the nanoscale as well as to validate the developed methodology. The emphasis will be to link atomistic simulations and continuum approaches to develop a mechanism-based model that is able to predict mechanical behavior of crystalline materials at length scales ranging from nanometers to submicrons. Collaborations with national laboratory and industry partners will focus on practical applications of the developed models.